A Synthesis of Objective Bayesian and Designed Based Methods for Finite Population Sampling

ABSTRACT
proposal: 0406169
PI: Glen Meeden

A synthesis of objective Bayesian and designed based methods
for finite population sampling

Project Abstract

In the frequentist or design approach to finite population sampling prior
information is incorporated in the sampling design. However in some cases
when calculating estimates the design weights need to be readjusted, and
then it can be difficult to find sensible estimates of variance.
In the Bayesian approach prior information is incorporated through
a prior distribution. Since the posterior distribution does not depend
on the design it has been difficult to theoretically reconcile the
two approaches. The Polya posterior is an objective Bayesian approach
to finite population sampling that is appropriate when little
or no prior information is available. The investigator is developing
a synthesis of this objective Bayesian approach and the design
based approach. It has two main threads. In the first the Polya
posterior is extended to problems where it cannot be applied directly
because of additional prior information contained in auxiliary
variables. This leads to a constrained or restricted
version of the Polya posterior. In the second Bayesian models are
developed which directly include the design in the specification of the
prior. Such models are a generalization of the Polya
posterior and using them one can objectively incorporate
into a prior the same kind of information that is encapsulated in a design.
The investigator is developing the underlying theory and methods to
simulate from these objective posteriors so that estimators can be
found in practice and their frequentist properties studied.

One of the most basic problems of statistics is making an inference
about a population based on a sample collected from the population.
When little is known about the population the mean of the
values in a random sample is used as an estimate of the population
mean. However in addition to the estimate one also needs a
sensible measure of its uncertainty or variance. In most
situations there is prior information available about the population.
This information should be used in deciding what units are to be
included in the sample, the value of the estimate and the appropriate
measure of uncertainty. The investigator is working on a synthesis
of the two standard approaches to these problems. The results should make
more effective use of available prior information than present methods.
Because of the many surveys done each year by government and others
improving survey practice is of great practical significance.